CAREER: A Framework for Fault-Tolerant and Secure Agents

CCR-9870652
CAREER - A Framework for Fault-Tolerant and Secure Agents
Rida A. Bazzi

The research considers agent-based systems, and develops techniques
to support the development of reliable agent-based applications
in large and open distributed systems. Such applications are
important for the growth of electronic commerce, and Internet
computing.

The main goals of the research is to provide a framework for secure,
fault-tolerant, and heterogeneous agents and to study fundamental
limitations on such a framework. The desired agent characteristics
are achieved automatically with little or no modification to the
source code. The research uses compiler techniques to provide the
ability for applications to save and restore their execution states
in a heterogeneous environment. Code hiding techniques are
developed to provide secure agent execution in hostile environments
without compromising source code or execution results. Compiler
techniques are also used to provide fault tolerance, and new techniques
are developed for tolerating failures in heterogeneous environments.

The research is complemented by an educational component, the main
goal of which is to attract undergraduate students to do research
in computer science.